2000 Spring Topology and Dynamics Conference, San Antonio, Texas

DMS-9987663
Haoxuan Zhou

This award provides partial support for the featured speakers and for some graduate students to attend the 2000 Spring Topology and Dynamics Conference. The conference is one of a continuing series of conferences that are held each spring at a variety of different institutions. This year the conference is being held in San Antonio, Texas, and is being hosted by the mathematics departments of the University of the Incarnate Word and the University of Texas at San Antonio. Further information on the conference is available at http://universe.uiwtx.edu/~yang/public_site.